MRI: Development of a High Density, High Performance Beowulf Cluster

Texas A&M University plans to design and build a 256 processor,
medium grain parallel machine with as close to maximum floating
point performance per dollar as possible. This system, commonly
referred to as a Beowulf cluster, will require a modification of
the usual paradigm in order to solve certain design problems
inherent in these systems. The cluster will contain 256 processors
consisting of 128 nodes using dual AMD motherboards, each with
1GB ECC DDR DRAM and will be interconnected with Gigabit Ethernet
to form one of the largest and most powerful academic clusters.
Components will be chosen to minimize cost while maximizing
performance. Novel techniques for mounting and cooling the
motherboards will be explored in an effort to maximize the
density of the nodes. Multiple operating environments will
also be made available, allowing the end user to determine
which environment yields the peak performance for their
application. This machine will be used to solve a variety of
computationally intensive problems in the mathematical and
physical sciences and support researchers primarily located
in chemistry, mathematics, physics and statistics. One group,
with a core in numerical analysis but with emphasis on fluid
flowing porous media, will also include researchers with
expertise in oil recovery and in groundwater flow (from
Petroleum and from Agriculture Engineering) and in parallel
architectures (from Computer Science). In addition to problems in
large-scale computation, the groups will be solving problems in
inverse problems, nonparametric function estimation, statistical
methods for computational biology, quantum dynamics, high energy
physics, inorganic and organometallic systems, and polyatomic
molecules.

This effort will also provide an educational benefit, both within
the design and the implementation stages. Mechanical Engineering
will use the novel power and cooling requirements of the system as
source of activity in a senior design class. Once the system is in
place, the departments of Mathematics, Statistics and Computer
Science will provide courses in efficient utilization and
programming to allow maximum benefit to the designated research
groups, as well as the rest of the university community.